A Program of Medium Energy Nuclear Physics

The NSF-supported Program of Medium Energy Nuclear Physics will allow the nuclear physics group at the University of Illinois at Urbana-Champaign to continue to lead and contribute to high-impact experiments in international nuclear physics research. The research program fea-tures two major themes, namely 1) the structure and interactions of nucleons and nuclei and 2) fundamental symmetries and the standard model. The physics pursued by experiments in this program will help answer questions such as, How is the proton built? and Is the current parti-cle physics standard model correct? Specific activities include the following major, established international experiments: G0, HERMES, PHENIX, MuLan, and MuCap. Additionally, the group is helping to develop a new muon g-2 experiment and a sensitive search for a neutron elec-tric dipole moment. In addition to direct physics research outcomes, the group has reached be-yond the laboratory to make significant contributions to education and outreach and will con-tinue to do so. Research projects contribute substantially to the education of a large number of postdocs, graduate, and undergraduate students.